POWRE: Designs and Cryptography

This Visiting Professorship award at the California Institute of
Technology will allow the investigator to broaden and strengthen
her research.
Research will be conducted in two areas of mathematics, combinatorics
and cryptography. Both of these fields are interdisciplinary and
fall in the intersection of mathematics and computer science.
They have important applications in Information Theory.
The research projects in combinatorics are on existence problems
in combinatorial design theory and applications of decompositions of
edge-colored complete graphs in design theory. The emphasis is
on explicit constructions using both recursive and direct, efficient
computational methods. Applications of combinatorial designs can be
found in cryptography, scheduling, coding theory, statistics,
computer science, and molecular biology.
The projects in cryptography are of two types. The first is research
in the intersection of combinatorics and cryptography: an investigation
of combinatorial constructions for authentication schemes and of
designs which provide important cryptographic properties. The second
is to expand and broaden the investigator's research in cryptography.
Areas of particular interest for research include applications of
finite field theory, finite geometry, and other combinatorial
constructions used for public key cryptography.
An extended visit to the new Center for Applied Cryptographic Research
at the University of Waterloo will provide a unique opportunity for
collaboration and research in cryptography. This POWRE project is jointly supported by the MPS
Office of Multidisciplinary Activities (OMA) and the Division of Mathematical
Sciences (DMS).